Laguerre Polynomials in Production Simulation

This research is aimed at a fresh and novel approach to the problem of production costing in power systems. Central to current thinking relative to production cost calculation is the concept of "cummulants" or probability distribution first moment approximations. These convolution calculations can be vexing since they are known to be very useful when accurate and severely misleading in the decision process when inaccurate. A distribution of finite range can always be characterized by all of its moments. Approximations require a few moments but, how many is the question. The standard approximation to cummulants is the Gram-Charlier series with its Hermite polynomials. There is preliminary evidence that this series is the root of the problem and that orthogonal series such as Laguerre polynomial expansions offer solution. The work will be performed in Sydney, Australia at the University of New South Wales because, at the suggestion of the PI, work has already begun there. I expect the answer to be a result of this work with the expertise for future work to reside at Ohio University.